Workshop on Fracture Mechanics for Concrete Pavements: Theory to Practice

0532191
Roessler
Travel support is provided for keynote speakers and organizers for a workshop on fracture mechanics of concrete pavements. The purpose of the workshop is to define research needs in this specific area and to determine which of these needs can be satisfied by existing knowledge from more traditional fracture mechanics research on other materials, such as ceramics, and which needs require new approaches.